DIGITAL GOVERNMENT: A Geospatial Decision Support System for Drought

EIA-0091530
Stephen E. Reichenbach
University of Nebraska-Lincoln

Digital Government: A Geospatial Decision Support System for Drought Risk Management

This project will develop and integrate new information technologies for improved government services in the U.S. Department of Agriculture (USDA) Risk Management Agency (RMA). The mission of the RMA is to strengthen the safety net for agricultural procedures (farmers) through sound risk management programs and education. Rick management in agriculture is critically important to producers, their communities, and the nation's economy, but it involves many complex problems.

Our objective is to improve, through research and advanced development, the RMA's risk assessment services in three important ways:

To speed risk assessment with automation
To enhance risk assessment with increased spatial and temporal resolution and additional input variables To extend risk assessment to forecasts and economic analyses